ITR: Intelligent Memory Architectures and Algorithms to Crack the Protein Folding Problem

EIA-0081307
Torrellas, Josep
University of Illinois

ITR: Intelligent Memory Architectures and Algorithms to Crack the Protein Folding Problem

This project is a multidisciplinary effort to design fundamentally improved algorithms, hardware, and software to solve the protein folding problem. The project, which teams experts in hardware, software, and computational biology, promises advances in applications of protein folding such as drug design and understanding of diseases. In addition, the project will investigate new hardware and software based on advancing IC technology. The architecture under examination will use increased integration of processors and memory in a single chip, and software will take advantage of the proximity of memory and processing. This work is tightly coupled to the IBM Blue Gene effort, but will investigate complementary issues. In particular, simulation-based studies will investigate the use of next-generation intelligent architectures.